REU: The Function of Display: A Comparative Study

Dr. Borgia will conduct a comparative study of behavior and evolutionary relationships among different bowerbird species. He will develop a biochemical phylogeny of bowerbirds based on comparisons of mitochondrial DNA. In the field he will observe and experimentally manipulate conditions for six species. This comparative information can be used to reconstruct the historical sequence by which complex traits evolved and to carry out novel tests of hypotheses about the operation of choice. The proposed study represents the first attempt to use comparisons within a group of related species to evaluate recent models for the evolution of choice and display. This study should help provide critical information for developing a general model. Such knowledge can have important economic applications in pest control, game management, species preservation, and animal breeding.